Mathematical Sciences: Theory and Applications of Homoclinicand Heteroclinic Bifurcation

The investigators will continue development of new analytic approaches to homoclinic and heteroclinic bifurcation in several important areas of applied dynamical systems. In particular, they will continue development of a new bifurcation function approach to periodic and aperiodic solutions near homoclinic orbits and heteroclinic cycles. They will to continue development of a unified theory of interior layers of singular perturbation problems using heteroclinic bifurcation techniques and a version of the shadowing lemma. They will continue working with shock wave solutions of nonstrictly hyperbolic PDE's and PDE's that change type using heteroclinic bifurcation techniques. They will extend a new rigorous algorithm for numerical continuation of homoclinic and heteroclinic orbits to include continuation to the point where an equilibrium becomes nonhyperbolic. Finally, they will investigate nonhomogeneous solutions of reaction-diffusion equations near spatially homogeneous solutions represented by homoclinic orbits or heteroclinic cycles of an ODE.